EAGER: Networked Aerial Base Stations for Enabling Emergency Communications During Disaster Recovery

This Smart and Connected Communities research project focuses on developing an innovative solution for enabling emergency communications during disaster recovery. An aerial base station can substitute for a damaged cell tower and provide cellular connectivity among the first responders and citizens who were impacted by a natural or manmade disaster until the damaged cell tower is restored. The project will lead to fundamental understanding of the science and engineering aspects of the design and deployment of aerial base stations. It will result in a proof-of-concept for a deployable communication system. Aerial base stations have the advantage of higher altitude compared to regular cell towers. They provide better coverage and connectivity to the users. They can be deployed more quickly after a disaster when compared to Cells on Wheels which are traditionally deployed by cellular providers during disaster recovery.

This project addresses the capability to quick deploy a communication system, which is a technology gap in today's emergency communication systems. The proposed research investigates efficient strategies for providing cellular coverage in areas where the coverage is not available or lost due to loss of cell towers. It brings the network closer to the disaster victims and relays the voice calls and data between the first responders and victims. The immediate need for quickly deployable communication systems during disaster recovery times makes this project a high-risk and high-reward project. Graduate and undergraduate students, who are participating in this research project will gain hands-on experience in developing innovative solutions for communities effected by disasters.

This smart and connected community project engages local communities including the Fire Department and the Civil Air Patrol in the City of Denton, Texas, as well as private organizations in Telecommunications and Aviation industry. The project will be demonstrated in two phases during the Global City Team Challenge Exhibitions (2016 and 2017) organized jointly by the U.S. Ignite and the National Institute of Standards and Technology.